POWRE: Bond Graph Modeling and Analysis of Musculoskeletal Systems

9805936
Wojcik
The objective of this research is to develop algorithms for the study of biomechanical systems using bond graph techniques. A set of standardized musculoskeletal modules will be developed to describe muscle spindle receptors, muscle crossbridge mechanisms, tendon organs, and other passive resistance and feedback control elements of the human body. These modules would be combined to form models of musculoskeletal dynamics, in particular, for studies of balance and the mechanisms of recovery from perturbations in balance. Model predictions will be compared with experimental data to demonstrate the feasibility of the proposed techniques. This research is appropriate for the POWRE program because it will permit the principal investigator to establish an independent research program which will further her career advancement.
***